Young Scholar Program - for High Ability and High Potential Secondary School Students with Orientation Toward Chemical Engineering

This program will bring eighteen high school students (grades 10-12) to the campus of Texas A&M University for career orientation and instruction relevant to science and engineering, with special emphasis on Chemical Engineering. Students from small, rural, and predominantly minority high schools will be targeted. The program duration will be four weeks, beginning June 6, 1988, and the students will reside in dormitories on the Texas A&M campus. Activities will include work on a research project under the direction of a Chemical Engineering faculty member, lectures, seminars, discussions, and field trips. The instruction, discussions, and field trips will emphasize career orientation, communications skills (both written and oral), and problem solving methodology (both in class and with microcomputers). Instructors will include Chemical Engineering faculty and graduate students, staff from the Speech Communications Department, invited speakers from other areas of the campus and industry representatives.